Long & Medium Term Research: Development of Stable Si and Ge Single Crystal Monochromators Under High Heat Loads

Long & Medium-Term Research: Development of Stable Si and Ge Single Crystal Monochromators Under High Heat Loads This award recommendation is made under the Program for Long & Medium-Term Research at Foreign Centers of Excellence. The program seeks to enable U.S. scientists and engineers to conduct long-term research abroad at research institutions of proven excellence. Awards provide opportunities for the conduct of joint research, and the use of unique or comple- mentary facilities, expertise and experimental conditions in foreign countries. This award for a proposal sponsored by Dr. Jerome B. Cohen will support a twelve month visit to the United Kingdom by Dr. John P. Quintana to work with Prof. Michael Hart of the University of Manchester on "Development of Stable Si and Ge Single Crystal Monochromators Under High Heat Loads." Synchrotron radiation has become an extremely important tool in material studies. Insertion devices greatly increase the flux to the point where heat load induced physical distortions of the optical elements limit the flux and resolution of the final beam. The heat load problem will be more severe on the next generation synchrotrons such as the Advanced Photon Source (APS) and the European Synchrotron Radiation Facility (ESRF). Consequently, new optics, including monochromator designs are necessary to fully exploit the capabilities of these high brightness sources. The proposed study will develop stable monochromators for current high brightness synchrotron radiation sources as well as very high power sources (APS and ESRF). The basic method will be to improve on the basic thin wall adding the capability to elastically distort the crystal to counter deformations at high heat loads. The award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents' allowance if applicable, and a flat administrative allowance of $250 for the U.S. home institution.